Establishment of a Multi-Purpose General Science Laboratory at Apache Junction Campus

The Multi-Purpose General Science Laboratory allows majors and non -majors opportunities to participate in scientific experiments in several disciplines including: physics, chemistry, biology, environmental science, and general science. The multi-purpose laboratory enables majors to explore the sciences more fully and serves as a "hands-on" laboratory for non-majors completing the general education requirement. The grantee provides funds for this project that are more than an equal match for the NSF award.